NorthWestNet--A Northwest Regional Network

The Western Interstate Commission for Higher Education (WICHE) and the Northwest Academic Planning Forum propose to establish NorthWestNet, a regional network comprising the states of Alaska, Idaho, Montana, North Dakota, Oregon and WAshington. (The schools include: University of Washington, University of Oregon, Oregon State University, Oregon Graduate Center, Washington Sate University, University of Idaho, Montana State University, University of Alaska, and the North Dakota State Board of Higher Education). They also propose to establish the Northwest Academic Computing Consortium (NWACC) to administer NorthWestNet and other activities which will enhance supercomputer access and the environment for academic scientific computing in the region. the NorthWestNet regional network would thus provide access to supercomputer resources and national data bases and provide intercommunication with other researchers in other regions by virtue of a link from the region to the NSFNet which connects the six NSF supercomputer centers. The Foundation is requested to support the plan by funding necessary equipment and communication facilities for three years. The participating institutions will provide research training, and technical support of the project as well as space, utilities and other resources as required. NorthWestNet, with linkage to NSFNet which interconnects all of the NSF supercomputer centers, would improve the capability of scientists and engineers at these and future research institutions in the northwest area to access and utilize all supercomputers resources, to encourage intercampus cooperation, and to provide for the development of a community of scholars that extends beyond campus or state boundaries. Thus this regional network is essential for gaining effective and robust infrastructure for cooperative research.